A Scholarship Program for Natural Science Majors in the CST Scholars Academy

Sixteen academically talented students with financial need are receiving academic year scholarships of $5,000 annually for a maximum of four years. The students who are electing to attend summer school are also eligible to receive a $2500 summer scholarship to participate in an optional undergraduate research program or to undertake a full-time enrollment in courses applicable toward meeting their graduation requirements in a STEM discipline. The project is building on a model developed under a previous STEM Talent Expansion Program (STEP) grant. Designed to foster a high level of interest and achievement in science by economically disadvantaged and underrepresented first generation college students, the project is increasing the number of Hispanics and African-Americans receiving degrees in STEM disciplines.